Science and Math in Spanish-language Media

The Lawrence Hall of Science (LHS) will collaborate with the Children's Museum of Houston, Miami Museum of Science and the New California Media (an association of over 500 ethnic media organizations) to provide youth ages 7-10 with standards-based science and math activities using newpapers as a vehicle. Mathematics and science challenges, already field-tested by the LHS, are presented as educational inserts using cartoons, on a weekly or monthly basis. The content to be addressed includes numbers and operations, algebra, geometry, science as inquiry and life science through engaging formats in Spanish-language newspapers. While building on the "Newspapers in Education" program, strategic impact will be realized by demonstrating the ability of a more intensive approach to reach families of underserved and underrepresented audiences through a collaboration of print media, museums, libraries, schools and community organizations. The ultimate goal is to increase exposure to informal science education activities at museums and in Spanish-language media. Deliverables include the newspaper activities (designed for families to use at home), family sessions at local libraries, science centers, after school programs and community organizations as well as a festival and website. Promotional sessions at New California Media Expos and workshops at the Asociation of Science and Technology Centers conferences will introduce the project to media and museum partners. This project will target underserved communities in California, Texas and Florida and is estimated to reach more than 450,000 families by year three.